NSF Young Investigator

9457549 Frost This is an NSF Young Investigator Award. It involves the study of computer-based systems and methods for the acquisition, management and visualization of geotechnical engineering information. The research seeks to further integrate the use of imaging and information technologies in the analysis of geotechnical information, by taking advantage of the fact that the analyzed data is in digital form, and thus can be readily used in computer visualization of geomechanics processes. The focus is on the development of analytical techniques. Specific aspects of the research involve digital imaging processing and analysis techniques for acquiring information, geographic information system hazard analysis, and the visual analysis of geotechnical processes. The development of imaging and information system algorithms and procedures for these specific tasks is fundamental to the longer term goal of creating an integrated visual analysis framework. There are strong links between the research and the teaching plan, which comprises an educational research component involving visualization. It involves the development of a "Geotechnical Test Simulator" which will be evaluated and compared with conventional teaching methods. The combined teaching and research plans seek to integrate the results of interdisciplinary research and teaching developments into education and practice. ***